Are All Sets Constructible?

The mathematical theory of sets first developed in response to deep problems in the foundations of the calculus and the theory of functions. After considerable initial success, progress in these areas came to an abrupt halt and an number of natural open problems stubbornly resisted solution. The explanation came only later; in fact, these problems cannot be answered on the basis of the standard axioms. This discovery led to a search for new axioms, and today's set theorists are faced with two distinct theories, theories that provide opposing answers to many of the previously open problems. The question of which of these theories is true is not strictly mathematical; one isn't looking for a proof. Previous axioms were judged on their purported "obviousness", but the current candidates enjoy no such status. Thus a novel methodological problem arises: how can such hypotheses be judged? Professor Maddy's goal is to provide a philosophical analysis of the nature of this question -- is such-and-such a an axiom candidate true? -- and to delineate that range of methods appropriate to answering it. She will then apply these methods to one particular new axiom candidate: the assumption that all sets are constructible. This research is of great importance for the philosophy of science and foundational studies of mathematics.